Forty-Third Annual Gaseous Electronics Conference; Urbana, Illinois; October 16-19, 1990

The University of Illinois will host the Forth-Third Annual Gaseous Electronics Conference in October 16-19, 1990 with partial support from the National Science Foundation. The conference serves as a forum for low temperature plasma and related work on the boundary between basic and applied science, and involves scientists from industry, academia, and national laboratories.